Some Algorithmic Issues in Computational Biology

Algorithmic issues concerning several problems in Computational Biology
will be investigated. Problems on Gene Networks, DNA Sequence
Assembly and DNA Sequence Analysis will be emphasized. A Gene Network tries
to explain the observed lethality of a cell due to pairwise deletion of genes
in its genome. In the DNA Sequence Assembly area, we propose development of
algorithms for a better utilization of mate pairs data. The proposed
problems in the DNA Sequence Analysis deal with the construction of
space efficient dynamic data structures for performing fast approximate
match queries.